Phase Formation and Stability in Icosahedral Phase Metallic Alloys

This research is aimed at greater understanding of the underlying mechanisms associated with the formation and stability of icosahedral phases. Several factors associated with the development of icosahedral structure are under examination, including effects of solute atom size, electron count and electronegativity. The crystallization of stable icosahedral phases in the titanium-manganese-silicon system is being examined to determine how the behavior changes with silicon concentration. Diffuse scattering behavior and crystallization studies are being planned for selected icosahedral phase systems.